Workshop on Integrating Approaches to Computational Cognition

This project is to host a workshop focused on identifying frontiers for collaborative research integrating mathematical and computational modeling of human cognition with machine learning and machine intelligence. The workshop will bring together leading researchers who are working at the intersection of the fields. The goal is to initiate dialogue between people working within different computational frameworks, to identify points of synthesis where new scientific insights or breakthroughs are most likely, and to identify gaps and obstacles to collaboration between the two communities. A summary report will be produced that details the products of the discussion, highlighting prospects identified for future collaborative research.